Near-Field Scanning Optical Microscopy Study of Polycrystalline Semiconductors

9704780 Collins This project aims to improve understanding of polycrystalline materials, specifically GaAs and CdTe for this study, through microscopic investigations of individual grains, grain boundaries, and interfaces, and the effects of surface passivation treatments on these features. The key component of the approach involves the use of near field scanning optical microscopy(NSOM) transmission, along with photocurrent, photoluminescence and minority carrier lifetime measurements. %%% The project addresses basic research issues in a topical area of materials science having technological relevance to electronics and photonics. The research will contribute basic materials science knowledge at a fundamental level to polycrystalline materials. Additionally, the fundamental knowledge and understanding gained from the research is expected to contribute to improving the performance of these materials in a variety of applications by providing a better understanding and a basis for producing improved materials, and materials combinations. An important feature of the program is the integration of research and education through the training of students in a research area with strong technological relevance. ***